Managing Differences in Orientation and Strategy in Group Negotiation

Managing Difference in Orientation and Strategy in Group Negotiation The proposal involves a study of how initial differences in motivational orientation of group members affects group member's strategic behavior in the course of a negotiation and thus, the outcome of the negotiation. The PI outlines 10 hypotheses about how changes in the proportion of individualistic versus cooperatively oriented negotiators will influence the negotiation process and outcome. These hypotheses will be tested in an experimental setting.